Mathematical Sciences: Presidential Young Investigator Award

This research is concerned with Inverse Problems, that is, making inferences about the world from indirect and distorted data. Particular examples include: study of the geodynamo and earth's magnetic field at the core-mantle boundary using satellite and observatory mearurements of the magnetic field. study of the three-dimensional seismic velocity structure of Earth using observations of ground motion after earthquakes. "deblurring" images and recovery of missing frequencies in wideband signals in exploration seismology, spectroscopy. Progress in inverse theory requires new methods for measuring the uncertainty given nonlinear physical constraints, and nonlinear data relations. New techniques will be developed and applied to rigorous inference of nonlinear problems with nonlinear prior information.